LOCAL-GLOBAL INTERACTION IN NONCOMMUTATIVE GEOMETRY

ABSTRACT

The foremost objective of this project is to extend the local representation of the
characteristic classes of noncommutative spaces to the more intricate spaces
described by the spectral triples of type III introduced by Connes and the PI. The
resulting local-global theory will be applied to the transverse geometry of
foliations, to modular forms, Hecke operators and Rankin-Cohen brackets, and to
the refinement of the mathematical formulation of the standard model of particle
physics. In the process, the Hopf cyclic theory of characteristic classes for
foliations will be extended to all classical types of transverse geometries. In a
different direction, the concept of boundary will be incorporated in the spectral
triple approach, and the characteristic classes of the noncommutative spaces
with boundary will be developed by means of relative cyclic cohomology.

In various branches of science, the concepts of local and global form two markedly
different but coexisting facets of a theory, which are often correlated in an
interesting way by a local-global principle. The present project will develop new
tools for the implementation of this principle in the setting of noncommutative
geometry, a modern variant of geometry inspired by quantum mechanics which
allows for non-commuting operator-valued coordinates. Although this feature
precludes ab initio any naive spatial conceptualization based on points, there is a
more subtle interpretation of the notion of locality, inspired by the Bohr
correspondence principle in quantum mechanics, which will be fully exploited. The
proposed work will engender new connections between several fields of
mathematics and physics, thus stimulating their mutually enriching interaction.